Direct and Inverse Electromagnetic Scattering Problems for Complex Periodic Media

The interaction and scattering of light by periodic structures at the nanoscale
is a topic of great significance in the area of nanophotonics and metamaterials
technology. With the current rapid development of this enabling technology, there
is a high demand on new mathematical theories and computational algorithms
for both direct and inverse problems of the light scattering by periodic complex
media or periodic metamaterials. This project aims to develop such theories
and algorithms. Results from this project will advance knowledge, understanding
and imaging techniques in the technology of nanophotonics and metamaterials.
For instance, the mathematical theories and the computational algorithms developed
for the direct problems are extremely useful for the simulation, fabrication and
maintaining of optical devices. The imaging techniques developed for the inverse
problems can be potentially of practical use for non-destructive tests, which help
to detect and characterize discrete flaws in optical components and devices.

The project contains two main areas of study: the mathematical and numerical
analysis for direct scattering problems, and the development of efficient inversion
algorithms for inverse scattering problems. More precisely, for the direct problem,
the PI and his colleagues will work on the following topics: 1) develop volume integral
equation formulations for direct scattering problems for periodic complex media; 2)
develop fast integral equation-based numerical solvers for the direct scattering problems;
3) study interior transmission eigenvalues for periodic complex media; 4) study
well-posedness of the scattering by chiral metamaterials. The proposed research
for the inverse problem includes the topics: 1) develop sampling methods
for imaging of periodic complex media; 2) develop sampling methods for the detection
of local defects in photonic crystals; 3) develop globally convergent methods for
the identification of material parameters for photonic crystals.